Algorithms for Data Compression Based on Grammars and Trees

Modern data storage and data transmission systems can
simultaneously process data of various types, including text,
audio, image, volumetric and video data. There is a need for
data compression in these systems, in order that efficient use
may be made of the limited amount of memory and bandwidth that
is available, while meeting the consumer's demand for
flexibility in data delivery services. In order to satisfy
this need, this research seeks to develop innovative algorithms for both lossless and lossy data compression. Compression algorithms are sought, which adapt themselves to general data structures, inferring and exploiting relationships in the data for compression purposes.

The research will focus upon a type of data compressor
called a grammar based compressor. A grammar based compressor
represents relationships in the data using a grammar, so that
the production rules of the grammar describe how the data
is to be exactly or approximately reconstructed. Data
compression is achieved by reducing this grammar or its
associated derivation tree to a more compact form, through the
use of reduction rules. The specific goals of the research are
to obtain grammar based compressors which are capable of
handling general data structures (including data trees, 2-D and 3-D data, and other regular structures), which process data with linear time and space complexity, which provide good
maximal redundancy performance, and which are universal and
perform well with respect to other universal compressors.
Grammar based compressors with good theoretical properties
shall be tested by means of computer experiments on real data,
and comparisons shall be made with state of the art compression systems. Emphasis will be placed on finding robust grammar based compressors, which yield near state of the art
compression performance regardless of the type of data to
which they are applied.